NIRT: Nanoengineered Responsive Polymer Surfaces for Micro/Nanofluidic Bioanalytical Systems

NIRT: Nanoengineered Responsive Polymer Surfaces for Micro/Nanofluidic
Bioanalytical Systems

Abstract: We propose to explore nanoengineered stimulus-responsive
polymer nanolayers as an innovative platform for surface modification of
micro/nanofluidics-based bioanalytical systems. Surface-grafted polymers
that exhibit large changes in swelling and wettability properties in
response to external stimuli (e.g. temperature) will be synthesized and
characterized. Microfabrication techniques for generation of patterned
responsive polymer nanolayers will be developed to enable functional
micro/nanofluidic bioanalytical devices. The utility and impact of this
responsive polymer-based surface modification technique will be
demonstrated by its application to micro/nanofluidic manipulation and
control. Specifically, we will explore thermally responsive polymer
nanolayers for generation, splitting, merging, mixing, and transport of
femtoliter-volume droplets. Thermally responsive polymers will also be
used for microchip chromatography, where sequence-specific separation of
DNA oligomers will be achieved using specialized surfactants. The
proposed NIRT will be integrated with graduate and undergraduate
education, and will be actively involved in outreach events in the
Pittsburgh area.